A Laboratory Investigation into the Interaction Between Positrons and Electrons

Dr. Boehmer will generate the first electron-positron plasma ever produced in the laboratory. Plasma parameters are expected to be qualitatively different from conventional electron-ion plasmas, in particular electromagnetic wave propagation should carry a polarization signature distinctly different from ordinary plasmas.